Oakland University Noyce Teaching Scholars Program

This award is funded under the American Recovery and Reinvestment Act of 2009 (Public Law 111-5).

Using a variety of recruiting techniques to attract high quality science, technology, engineering and mathematics (STEM) career changers to the teaching profession, Oakland University in partnership with the Avondale, Hazel Park, and Oak Park School Districts is producing thirty new science and mathematics secondary teachers who will teach in high needs school upon certification. In addition to their scholarships, Noyce Scholars are receiving funds to attend a regional professional meeting and, upon certification, an opportunity to apply for mini-grants to provide resources to upgrade STEM programs at their new schools. The scholars are being mentored by exemplary teachers from partnering schools both during their preparatory year at the University and during their early years as a teacher.